EAGER: Experimental GPU Cluster for Fundamental Physics

0946441
Brower

This proposal will be awarded using funds made available by the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

This project will operate a small experimental GPU cluster configured for application physicists and applied mathematicians working in Lattice Field Theory (LFT) and Computational Fluid Dynamics (CFD). The research goal is to develop new algorithms and programming strategies to fully realize the potential of emerging many-core technologies,as well as to implement these algorithms in production application codes on Graphical Processing Units.
With Nvidias CUDA framework and the widely-supported OpenCL standard, such architectures appear eminently suited for parallel scientific applications. The project will focus on rethinking the underlying algorithms to properly map them to the hardware, with an emphasis on employing many GPUs in parallel.